The Integration of State-of-the-Art Computer-Aided Analytical Instrumentation/Data Analysis into an Undergrad- uate Environmental Curriculum

With the recent acquisition of several major pieces of instrumentation, the Environmental Health Department at West Chester University is establishing a computer-aided environmental laboratory which will be integrated into the University's undergraduate environmental curriculum. The instruments include an atomic absorption spectrophotometer, a gas chromatograph, and a UV/visible spectrophotometer with appropriate computer interfacing to provide instrument control and data analysis and reporting. The project is providing a stimulating, advanced learning environment in which students study environmental pollution and methods of control. Ten environmental courses are being improved, a new advanced environmental monitoring and analysis course is being developed, and a laboratory manual will be written and published. Significant improvements in undergraduate instruction in environmental science are being implemented, and scientists better able to solve the Nation's complex environmental problems are being educated.